Collaborative Research: The Temperature History of the Western Pacific Warm Pool over the last 30 ka

9500647 Edwards This project will collaborate with French scientists to drill coral terraces in the western tropical Pacific. Three sites will span the center and southern margins of the Western Pacific Warm Pool, and will be drilled to about 30,000 yr BP. Samples will be analyzed for stable isotopes, U, Sr and radiocarbon. The project will address two objectives: (1) a record of warm pool thermal stability at several scales of climate change (with implications for circum-Pacific climate) and (2) calibration of the radiocarbon age scale (relevant to all science which depends on radiocarbon dating). ***